CDS&E: Asteroseismic modeling for galactic archaeology with hierarchical machine learning

Pulsations within stars provide information on their inner structures, but they are extremely difficult to model because the necessary physics simulations require prohibitively large amounts of computational time, even on supercomputers. This research project will use artificial intelligence (AI) techniques to speed up physics simulations of stars and their pulsations to properly model thousands of nearby giant stars. The results from the project will improve our understanding of the physics of the stars, reveal their ages, and help piece together the history of the Milky Way galaxy. The project will support a graduate student, and the investigator will host a computational astrophysics summer school and hackathons to train the next generation of scientists in AI and astrophysics.

This project will develop machine-learning emulators to reproduce detailed stellar evolution and pulsation models at negligible cost, thereby enabling full Bayesian inference using individual oscillation frequencies. A hierarchical field model will allow uncertain stellar physics parameters (mixing length, core overshoot, diffusion efficiency, wind mass loss, and nuclear reaction rates) to vary smoothly with mass, metallicity, and evolutionary state, letting the entire stellar population constrain these quantities simultaneously. This unified approach will (i) produce the most precise catalog of masses, radii, and ages for solar-like oscillators; (ii) deliver empirical calibrations of the physical processes governing stellar evolution; and (iii) provide new constraints on the Galactic Disk’s chemical enrichment law, star formation history, and initial mass function. The resulting methodology would be a major advance that will enable population-scale inference that was previously impossible due to computational cost. These tools will be indispensable to the analysis and interpretation of large data volumes anticipated from upcoming astronomical missions and observatories, where the asteroseismic sample of red giants will increase by more than an order of magnitude. All developed software, neural network emulators, and derived catalogs will be released as open-source tools to support reproducible research and future exoplanet and galactic archaeology surveys.